Deep Submergence Operations - 2005 (Year 1 of 5)

PI: Barrie Walden
Proposal #: 0513945

This award will fund 2005 operating funds for the National Deep Submergence Facility (NDSF). Resources will provide support for the following NDSF vehicles: Deep Submergence Vehicle Alvin, the Remotely Operated Vehicles (ROV) JASONII, MEDEA, ARGO-II and the DSL-120A towed sonar. These assets are available for use with funded science programs utilizing the engineering and operational personnel of the Woods Hole Oceanographic Institution's Deep Submergence Group. The 2005 operating plan includes 393 assigned operating days for DSV ALVIN and the ROVs. There are 101 days on station for R/V ATLANTIS during eight cruises for the National Science Foundation, NOAA, and the Navy. Recommended ROV use includes 214 assigned ROV operating days: 18 aboard R/V ATLANTIS, 103 on R/V THOMPSON, and 93 on R/V MELVILLE.